Conference: Probability: Seminar on Stochastic Processes 2026

This award supports the 2026 edition of the Seminar on Stochastic Processes, held March 25-28, 2026 at Union College, in Schenectady, NY. This annual meeting has had tremendous impact on the probability community since its inception in 1981, both in North America and internationally. The conference brings together a diverse group of accomplished and early-career researchers and graduate students working in the fields of probability and stochastic processes. There are six invited speakers, delivering four plenary lectures, one distinguished plenary lecture known as the “SSP Founders lecture”, and one tutorial speaker giving a set of two 90-minute deeper-dive lectures aimed at Ph.D. students working on stochastic processes. There are two poster sessions with brief introductory talks, two open problem discussion sessions and a panel session on career development. The conference provides all the participants an opportunity to interact and discuss recent advances in probability theory and stochastic processes, and their applications. As such, the conference represents an important networking opportunity for the many dozens of early-career researchers in attendance and it will enhance the careers of the next generation of researchers in stochastic processes.

The scientific committee has chosen invited speakers who represent a wide breadth of research areas in probability and stochastic processes, including stochastic analysis, stochastic partial differential equations, potential theory and the intersection of probability and analysis, probability on graphs, interacting particle systems, percolation, and other discrete probability and combinatorial topics, Artificial Intelligence (AI) via probabilistic generative models and latent variables, probability and geometry, and the theory of large deviations. The topics also cover a range of application areas including biology, data science, physics, and human medicine, particularly cancer research. Recent research work by other participants is presented at poster sessions. The open problem sessions provide opportunities for discussions about emerging and challenging topics in probability and stochastic processes and the formation of future collaborations. https://www.math.union.edu/~marianop/SSP2026/